Acquisition of an Excimer Laser, Quadrupole ICPMS and Microsampler for UC Davis

0946297
Spero

This award provides funding over 24 months to acquire an excimer laser and quadrupole inductively coupled plasma mass spectrometer (ICP-MS) for high-resolution paleoclimatological elemental and isotopic measurements. The requested configuration will allow analyzing a broad suite of elements and isotopes. Various geological materials can be analyzed and the instrument offers a rapid (<0.5 sec/analysis) sample throughput. The laser will offer ultra-high resolution (micron to nanometer spatial scale), and the system will have minimal inter-sample memory problems. Accuracy and precision will be comparable to wet plasma ICP-MS systems. The system will especially useful for measuring Metal/Ca (e.g. Mg/Ca, Ba/Ca, B/Ca etc.) and stable isotopes (carbon and oxygen). Research will focus primarily on paleoclimatic and paleoceanographic questions but the instrumentation will be applicable to many geoscientific-related themes. The new instrument will be a valuable training tool for graduate students, post-docs and exceptional undergraduates. The instrument will be used for teaching by the PI and Co-PIs in graduate and undergraduate geochemistry courses and undergraduate research projects and senior theses. This state-of-the-art instrumentation, unique in the US will allow the PIs, students and postdocs to remain at the forefront of new research areas and techniques. The instrument will be moved into a recently-renovated laboratory space. The PIs will collectively be responsible for operation and maintenance. Grant income and recharge funds will be used to maintain the instrument and support a technician. The administration will fund major repairs.

***